Capabilities and Limitations of Social Movements in Democratization and Building Civil Society: Case of South Africa's Civic Association Movement

INT 93-21688 Hyden This dissertation enhancement grant supports a U.S. graduate student enrolled at the University of Florida, Ms. Kimberly Lanegran, working under the guidance of Dr. Goran Hyden, Professor of Political Science, to do field research in South Africa. The project will study the role that South Africa's Civic Association movement has played in hastening political reform and nurturing norms of civic participation among previously disenfranchised black South Africans. The research will focus case studies on three communities (Lawaaikamp, Port Elizabeth, and Grahamstown) in the Eastern Cape, an area with the longest history of politicization, which, however, has been relatively neglected in research. The principal methods used will be interviews, participant observation, and archival research. The candidate's research will be linked to ongoing projects on Civic Associations that are being conducted at two universities in other regions of the country. She will participate in workshops organized by Dr. Tom Lodge at the University of Witwatersrand, in Johannesburg, and will also be associated with Dr. Thomazile Botha's Local Government and Planning Policy Research Project at the University of the Western Cape, in Capetown. This study by a promising young researcher will be a valuable contribution to comparative studies as well as to scholarship on South Africa. It would illuminate the role that organizations of civil society play in the emergence of democratic states in developing countries. The collaboration with South African scholars will build professional relationships that can be expect ed to endure throughout the individuals' careers. *** & r t ! & ! ! ! ! F & & 4 Times New Roman Symbol & Arial & Gatineau " h j j h Hyden-Lanegran INT 93-21688 abstract, So.Afric. dissertation Frances C. Li Frances C. Li